Fluid Inclusions as Recorders of Tectonic History

; R o o t E n t r y F b? C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l b? b? 4 @ * ! " # $ % & ' ( ) + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e j j j j j j j Q 1 3 T 5 Q j Q j j j j ~ j j j j > 9526668 Bodnar Results of two pilot studies offer encouragement that fluid inclusion reequilibration behavior is NOT a random process but, rather occurs systematically and reflects the changing physical and chemical environment of the inclusions. As such, fluid inclusion reequilibration characteristics may supplement other techniques used to infer P-T histories of samples which have experienced complex tectonic histories. The present project will continue and expand pilot studies to compare laboratory-reequilibrated samples with natural samples from well-characterized environments. The work will include more detailed study of samples from the two pilot studies as well as samples representing other P-T-paths. The effects of time, fluid composition, loading rates, inclusion size, shape, etc. on the reequilibration process will be examined in a systematic manner to develop a predictive tool that may be used to complement other commonly used techniques. ; Oh +' 0 $ H l S u m m a r y I n f o r m a t i o n ( D h R:\WWUSER\TEMPLATE\NORMAL.DOT 9526668 Felicia Smith Felicia Smith @ ? @ @ ? @ Microsoft Word 6.0 1 ; ! ! ! ! K @ Normal a " A@ " Default Paragraph Font > Felicia Smith-\\CLM12\EARTESHR\1995SEPT\ABSTRACT\BODNAR.TXT @HP LaserJet IIID LPT3: hppcl5a HP LaserJet IIID 8D R HP LaserJet IIID 8D R 1 Times New Roman Symbol & Arial " h % % $ 5 9526668 Felicia Smith Felicia Smith ; ;